SGER: Reformulation of System Theories in Robotics

This award, in the SGER mode, explores how the formulation of a system's motion affects the efficiency of synthesizing a plan to bring the system to a desired state. In general, a system's motion can be described in a variety of ways whose computational properties may differ. An especially important computational property is the decomposability of a theory of motion. A theory is decomposable if it is expressible as the composition of a set of subtheories. Decomposability is important because it implies that global properties of the system can be derived from local properties, thereby reducing the expense of computing these properties. In particular, global plans can be built from local plans. Decomposition is usually performed by the human designers of the system, who have prior knowledge of the demands that will be placed on the system, and engineer a representation whose properties will aid the system in meeting these demands efficiently. In robotics and artificial intelligence, the goal of designing truly autonomous problem solving systems requires a method for automatic decomposition. This research is built upon a new method for reformulating and decomposing theories of motion. Each representation of a theory is analyzed using the tools of semigroup theory. Each distinct representation corresponds to an abstract coordinate system, which then yields a matrix representation that is used to transform and decompose the representation into its irreducible invariants. Furthermore, this decomposition is guaranteed to hold for all tasks in a class of tasks inductively defined from the given task, permitting reuse of the decomposition on all members of this class. The ultimate goal of this research is to build systems that can automatically design and modify their representations by deriving algorithms for automatic reformulation of representations to improve their use in synthesis. Previous research in robotics and AI has produced powerful methods for searching task spaces - spaces whose states are configurations of the task domain. If successful, this research should produce reformulation methods of sufficient power that the search of the space of representations will be as automated as the search of task spaces currently is.